Support for the 2012 SnowPAC Workshop

Funds are provided for participant support for the 4th annual Snowbird Workshop on Particle Astrophysics, Astronomy, and Cosmology (SnowPAC 2012), organized by the Department of Physics and Astronomy of The University of Utah. The award will support participation (via lodging cost subsidy) by 20 individuals who would otherwise be unable to attend the meeting, with a particular emphasis on broadening participation by junior researchers and groups traditionally underrepresented in astronomy and astrophysics.

The SnowPAC workshop is an international meeting that reviews recent developments in particle astrophysics, dark matter, dark energy, astronomy, and cosmology. It seeks to establish new connections between these disciplines and establish new collaborative ties between individuals working in these research areas.

The main SnowPAC 2012 meeting will be a topical conference on "gravitational lensing in the age of survey science". This year's meeting will also incorporate a smaller workshop on dark-matter observations through gamma rays (titled "SnowDOG").